A Microcomputer Lab for a New Degree Program in Mathemat- ical Science

A microcomputer laboratory of varying capacity IBM computers in the Department of Mathematics at St. Mary's University, San Antonio will facilitate the development of a new bachelor of science program in applied and computational mathematics. A new course in mathematical modelling will be introduced and computers will be integrated into several mathematics courses starting with the calculus sequence.